Group Travel for United States Participants to the l2th International Congress of Biometeorology, Vienna, Austria

This proposal requests travel expenses to enable several U.S. scientists to attend the 12th International Congress on Biometeorology to be held in Vienna, Austria, 26 August through 3 September 1990. The Congress is a recognized forum for the discussion of influences of weather and climate on various biological systems.